Workshop: NASCAR, Northern Andes Subduction of the Carnegie Ridge, Chapel Hill, North Carolina

0221443
Lees

This award will support a workshop in Chapel Hill North Carolina to address problems associated with the subduction of the Nazca Plate below South America along the Northern Andes. The purpose of the workshop is to develop a science plan and to organize and coordinate the diverse research objectives of the NASCAR (Northern Andes Subduction of the Carnegie Ridge) initiative. The NASCAR initiative involves researchers from a broad range of earth science (Geology, Geophysics, Geochemistry, Geodynamics) and coordination of goals and field logistics is critical to the success of the program.